A Scanning Microdensitometer for Image Processing

A group of seven investigators will purchase a microdensitometer which will be incorporated in the Electron Microscopy and Image Processing Core Laboratory in the Cummings Life Science Center of the University of Chicago. The densitometer will be used in studies of the structure of sickle cell hemoglobin fibers, the structure of Dictoyostelium discoideum membrane, DNA protein complexes, the structure and mechanism of action of heat shock proteins, the structure of lipoproteins and the structure of secretory granules in Tetrahymena.